Enhancing STEM Education: Developing Highly Qualified Mathematics Teachers for High-Need Communities

The project addresses the national need to recruit, prepare, and retain highly effective secondary mathematics teachers who can strengthen student learning in high-need Local Education Agencies (LEAs). Metropolitan College of New York’s Teaching Fellowship Program will prepare STEM professionals and other eligible candidates to become certified mathematics teachers through a rigorous, accelerated Master of Science in Education program in Mathematics Education. The project is designed to strengthen the domestic STEM teacher workforce, improve mathematics instruction, and support long-term teacher persistence in schools where qualified mathematics teachers are urgently needed. This Track 2 Teaching Fellowship project will prepare two cohorts of Noyce Teaching Fellows over the six-year award period. Fellows will complete a fourteen-month MSED program that integrates advanced mathematics content, evidence-based pedagogy, clinical preparation, instructional technology, classroom management, assessment practices, and mentoring. The program will be implemented in partnership with the National Science Teaching Association and four high-need New York City high schools. These partnerships will support field-based learning, professional development, and structured induction experiences aligned with the expectations of secondary mathematics teaching.

The project’s major goals are to recruit and prepare 20 new secondary mathematics teachers; support Fellows in completing certification requirements; strengthen their readiness to teach mathematics effectively in high-need LEAs; and promote retention through mentoring, professional learning, and a peer-support network. Selection will be based on academic preparation, eligibility, commitment to teaching mathematics, program requirements, and capacity to fulfill the Noyce teaching service obligation. The intellectual merit of the project lies in its contribution to knowledge about accelerated mathematics teacher preparation, clinically grounded training, mentoring, and retention supports for STEM professionals entering secondary teaching. The project will use mixed methods to examine program implementation, Fellow preparation, certification progress, early-career teaching experiences, retention, and the effectiveness of key program components, including mentoring, professional development, and school-based support. The project will prepare mathematics teachers for high-need LEAs, strengthen mathematics instruction for K–12 students, support the national STEM workforce, and generate practical findings that can inform teacher preparation programs, school partnerships, and STEM teacher retention strategies. Findings will be disseminated through professional meetings, workshops, institutional reports, and publications to support broader improvement in STEM teacher preparation and retention. This Track 2 Teaching Fellowship project is supported through the Robert Noyce Teacher Scholarship Program. The Noyce program supports talented STEM undergraduate majors and professionals in becoming effective K–12 STEM teachers and supports research on the effectiveness and retention of K–12 STEM teachers in high-need school districts.